Chromosomal Evolution in the Primates

The chromosomes of primates have been studied for several decades, but the results of these studies have, for the most part, not been significant for anthropologists. Marks proposes to utilize the newest techniques of chromosomal analysis to examine patterns of morphological variation in the chromosomes of apes and humans, to interpret their interrelationships, and to test hypotheses concerning the rates and modes of chromosomal change in the higher primates. The techniques to be used include blood cell culturing, synchronized lymphocyte culturing, G- banding, C-banding, Q-banding, and in situ hybridization.